TECH TEAM: A Project Based Technology Sequence for Middle School Girls

The Educational Television Endowment of South Carolina, in collaboration with the South
Carolina Educational Television Network (SCETV), will carry out a program to increase middle
school girls' enthusiasm for and understanding of technology and introduce them to women who
work in science and technology fields. The project is a three-year pilot program called TECH
TEAM that consists of afterschool technology clubs, workshops in computer applications at
SCETV and Summer Technology Day Camps. Partners include the Girl Scouts of the Congaree
Area, Inc., the Girl Scout Council of the Pee Dee Area, and the College of Education of the
University of South Carolina. In addition to the girls themselves, TECH TEAM will train the club
facilitators - teachers and Girl Scout leaders - in video and computer-based technologies, project
based curriculum development and techniques for gender equitable education in an annual series
of Saturday workshops.

The TECH TEAM project will take place in three South Carolina school districts - the School
District of Fairfield County, Richland District One and Marion District One - all of which are
considered critical needs districts. Fairfield is a rural county in which 40.8% of the adults have
less than a high school education and unemployment is at the second highest level in the state.
Marion District One is in a poor, rural area in which 76% of the students qualify for free or
reduced lunch, over 50% come from single parent homes and 75% are minority. Richland District
One is an urban district. 80% of students are minority and 58% qualify for free or reduced lunch.

TECH TEAM is designed to increase girls' technological fluency through a progressive sequence
of technology applications in a hands-on, project based setting. In the first year, 2002-2003, the
girls will videotape interviews with local women who work in the fields of science, math,
technology and engineering. To locate their interviewees, they will learn and use research skills,
including both informal and Internet-based techniques. The girls will edit their videos using a
computer-based editing program, and broadcast them to schools across South Carolina via
SCETV's Instructional Television Fixed Service (ITFS). They will host two-way call-in shows on
the ITFS, allowing students anywhere in the state to respond and ask the girls questions.
In the second year of the project, 2003-2004, the girls will create a Web site about TECH TEAM
that will be integrated into www.knowitall.org, SCETV's Web portal for teachers and students. The
girls will design the layout of their site and publish writing, post videos and contribute to a
threaded discussion that will be developed for the site. In TECH TEAM's third year, 2004-2005,
the girls will create a searchable database of their videos for inclusion on the site, adding dynamic
elements that require the use of computer codes, so that they extend their fluency in the use of
computer technology. They will learn about SQL (Structured Query Language), and they will
develop CFML (Cold Fusion Markup Language) to make their databases Web accessible. In
addition to the afterschool clubs, they will attend a series of Saturday workshops taught by
SCETV programmers.

During each summer of the project the TECH TEAM girls will attend a Summer Technology Day
Camps at SCETV's Telecommunications Center in Columbia. The camps will allow all the
participants to meet each other, work in SCETV's computer labs, and present their work to an
invited audience. Throughout each year a video crew will document the progress of TECH TEAM
on videotape and interview the participants. This material will form the basis of a CD-ROM to be
produced for teachers' professional development. The CD will be mailed free of charge to every
middle school in South Carolina and will be made available nationwide through SCETV's
marketing division. Evaluation and assessment of TECH TEAM will be conducted by Dr. Kenneth
Stevenson of the College of Education of the University of South Carolina.

The impact of TECH TEAM goes beyond gender equity considerations to universal issues of
technology education, teacher training, adolescent development, the design of afterschool
programs, and partnerships between schools and informal education providers; TECH TEAM will
advance understanding of these areas as they apply not only to girls but to all students and
teachers.